Positron Annihilation Induced Auger Electron Spectroscopy

This experimental program will employ Positron annihilation induced Auger Electron Spectroscopy (PAES) for the study of surfaces and the Auger process itself. The exising UTA magnetically guided PAES system will be used to identify directly the elemental content of the top-most atomic layer and to obtain Auger spectra with extremely low energy dose rates. Systems to be studied include (1) the growth and interdiffusion of ultrathin metal films composed of iron, neodymium and palladium on copper, (2) adsorbates on metal surfaces, (3) suface segregation in alloys, and (4) fragile adsorbed layers and chemically unstable systems including organic molecules on catalytic surfaces and conducting polymers. Future modifications of the positron beam will make possible a new form of polarized Auger spectroscopy for use in the study of magnetic systems in which the polarization of the initial hole rather than the outgoing electron is selected.